Travel: NSF Student Travel Grant for 2025 Computer Security Foundations Symposium (CSF)

This award will partially support about 18 U.S.-based students to to attend the 2025 Computer Security Foundations Symposium (CSF) in June. CSF is an annual conference for researchers in computer security to examine current theories of security, the formal models that provide a context for those theories, and techniques for verifying security. Topics of interest include access control, information flow, covert channels, cryptographic protocols, database security, language-based security, authorization and trust, verification techniques, integrity and availability models, and broad discussions concerning the role of formal methods in computer security and the nature of foundational research in this area.

Student attendees will benefit in several ways: gaining experience presenting their academic work to peers, meeting and discussing ideas with other researchers, and learning about the latest research in security foundations. Beyond the benefits to the students themselves, supporting student attendance will help grow the CSF community, increasing the quality and breadth of both research and industrial talent available for improving security in the real world. Students will be selected based financial need, having a relevant paper at the conference, and being willing to volunteer to help organize the conference.